2009 Workshop on Semiparametric methodology

Semiparametric methods continue to be an active research area,
especially as computing resources and power grow. These methods are used
for inference in models with both parametric and nonparametric
components. Work in this setting ranges from semiparametric modeling and
efficiency to semiparametric regression. The former involves making
efficient inferences in the presence of infinite dimensional nuisance
parameters. The latter corresponds to regression models with parametric
errors and unspecified (nonparametric) regression functions. Fundamental
work remains to be done in high dimensional missing data problems, both
in the setting of frequentist and Bayesian inference and in estimating
regression functions with the complications posed in many different
areas of application. The workshop brings together leaders in the field
of semiparametric methodology and young researchers. The invited
speakers all are very distinguished individuals who have done
outstanding work in semiparametrics and have co-authored three of the
seminal texts.

Flexible modeling with few assumptions is an integral component of
solving many scientific problems. Semiparametric methods are a way to
accomplish this. Major advances have been made in the past thirty years.
However, fundamental work remains to be done in high dimensional
problems with incomplete data, in estimating regression functions with
the complications posed in many different areas of application, among
other areas. Applications for such work are wide ranging and include
spatio-temporal models, capture-recapture models, and measurement error
models in environmental applications, classification and testing in in
genetics and genomics, and missing data models in longitudinal
observational studies and clinical trials. The workshop provides an
excellent opportunity to discuss the many recent significant
developments in semiparametric methodology and to identify important
problems and new research directions.